NUE UNIQUE (Using Nanoscience Instrumentation for Quality Undergraduate Education)

This Nanotechnology Undergraduate Education (NUE) program entitled, "NUE UNIQUE: Using Nanoscience Instrumentation for Quality Undergraduate Education," at the University of Washington (UW), under the direction of Dr. Rene M. Overney will offer a sequence of undergraduate nanotechnology courses, in particular, a replicable model of a sustainable and continuously up-graded undergraduate teaching laboratory of scanning probe methods applied to nanosciences, spanning chemistry, physics, biosciences, materials sciences, and engineering. These courses will be offered by the Colleges of Arts and Sciences and Engineering at UW and the North Seattle Community College (NSCC).

The proposal for this award was received in response to the Nanotechnology Undergraduate Education (NUE) Program Solicitation (NSF 06-538), and is being co-funded by the Directorate for Education and Human Resources (EHR), Division of Undergraduate Education (DUE) and the following Divisions within the Directorate for Engineering (ENG): Bioengineering and Environmental Systems (BES); Chemical and Transport Systems (CTS); and Engineering Education and Centers (EEC).